FERMILAB, 1965-1990: A Case Study in the Emergence of Big Science

Drs. Hoddeson and Westfall are continuing their exploration of the critical features in the emergence of large-scale research in America through a close examination of the founding and first decades of operation of Fermi National Accelerator Laboratory (Fermilab), the base of the world's highest energy particle accelerator. As the United States prepares to enter a new phase in the pursuit of science on unprecedented scales, e.g., the Superconducting Super Collider (SSC), the Human Genome Project and the Manned Space Station, deeper understanding of the workings of "big science" through detailed case studies becomes especially vital. Through research in documents, supplemented by oral history interviews with leading participants, the project is designed to examine historical problems of big science, including: the effects on research of increased size, scope, and cost of facilities and experiments; changes in research resulting from much larger working teams, budgets, and time-scales; the role of theoretical models and computer analysis in experimentation and accelerator building; and the influences of geographical concentration, national and international politics, and economic policy.